CSR: Data-Streaming Foundations for Emerging Applications

Modern organizations depend on streams of live data to detect fraud, understand events as they happen, and keep complex services running. This project examines how to make data streams easier, cheaper, and more reliable for emerging new classes of applications. The project makes fundamental contributions by focusing on shared logs, the core storage abstraction that underlies data-streaming systems. Shared logs built in the last decade work well for many uses, but they were not designed for a world where applications are built in a cloud-native manner, span across different cloud providers, dynamically move between cloud providers, or use agentic capabilities powered by large language models (LLMs). This project creates new shared log foundations for that future.

This project organizes the work into three integrated research thrusts that each contribute new abstractions and protocols. The first thrust targets applications spread across several cloud providers, with the goal of cost-efficient and low-latency access to shared data, including a version designed to run economically on commodity cloud storage. The second thrust develops a control plane for applications that migrate dynamically from one cloud to another, with the goal of keeping real-time data available wherever the application runs, without disruption. The third thrust targets applications driven by agents powered by large language models, contributing efficient log primitives to create and discard many lightweight branches, so that many isolated explorations can share history without copying full streams. The thrusts will be unified into a single open-source system.

The project will broaden the impact of data-streaming technology by helping future platforms serve emerging applications in a more cost-efficient and flexible way. Improved shared logs can benefit companies and organizations that depend on real-time data for analytics, monitoring, decision-making, and automated services. The project will also produce an open-source shared log implementation that integrates the research ideas, giving researchers, developers, and students a usable artifact for experimentation and adoption. Results will be shared through systems research venues and developer communities. The project will support education by contributing new data-streaming course material and by training graduate and undergraduate students in research at the intersection of distributed systems, cloud computing, and artificial intelligence.